Use of Deep-Living Planktonic Foraminifera to Probe the Past Thermocline

The objective of the study is to exploit the modern day relationship of the size and shape of planktonic foraminifer G. truncatulinoides to the thermocline depth as a tool for reconstructing the structure and properties of the past thermocline of the Late Pleistocene. The thermocline depth has been shown to affect the life history of this species - as it shallows it alters the shell size frequency distribution and the rate ofshell development. Funds are provided for a pilot study of one year toconcentrate on plankton tow samples to further document the relationship of shape/size of G. truncatulinoides to thermocline dymanics. Once this relationship has been fully documented only then the downcore study of the Late Pleistocene sediments would be menaingful.